SGER: A Cellular Automata Approach to Ecological Modeling and Analysis

Cellular automata are useful paradigms for representing and analyzing spatial patterns and dynamics. And they have potential for investigating relationships between spatial processes and patterns at various scales and levels of organization in ecology. Various grid-cell schema have been applied in ecological research (e.g. succession, landscapes, biogeography), but generally lack the theoretical formalism of cellular automata. Cellular automata may be particularly useful for understanding how ecological complexity can arise from relatively simple local interactions. Dr. Rykiel proposes to: (1) evaluate available cellular automata tools (especially the CAM-6 computer board), (2) investigate potential applications of cellular automata in various areas of ecology, and (3) test cellular automata models with primary succession data for lupin (Lupinus lepidus) at Mount St. Helens. This research is an attempt to apply a new, untested approach to traditional areas of ecological research.